A Scientific Group Communications & Collaborative Testbed for Upper Atmospheric Research

This is a cooperative agreement to fund a multidisciplinary effort linking research in computer science, behavioral science, and upper atmospheric and space science to build a prototype system for a distributed but shared working environment: the vision of a collaboratory. This effort conceives, develops, deploys, tests, evaluates, and integrates a high performance group centered computing environment into the collaborative experimental and modeling activities ongoing in the upper atmospheric research community. The upper atmospheric researchers here are a collaborating group engaged in observational activities using a variety of instruments located at the Sondre Stromfjord, Greenland upper atmospheric research facility. Many of these activities are directed at rare or intermittent phenomena requiring real time control of instruments by the scientists observing the changing conditions. This is presently accomplished by visits to the remote facility. To prototype test and evaluate the distributed tools for collaboration, research under this agreement will develop a user- oriented, rapid prototyping testbed built around the Sondre Stromfjord facility and its user community. Testing and evaluation of the prototype tools will involve measurements of human behavior. This research will add to the understanding of effective use of collaboration tools by performing studies of use and effectiveness of these tools among the testbed users. The Sondre Stromfjord researchers expect to obtain greater efficiency in joint experimental operations, analysis, and discovery by guiding the requirements for the collaboration environment which they will utilize to support their research.//